Doctoral Dissertation Research: Integrated Assessment and Projection of Land-Use/Cover Change in the Southern Yucatan Peninsular Region of Mexico

Global environmental change confronts humankind in many important
ways. Tropical deforestation is one of the most pressing problems because
of its significant roles as a source and sink of greenhouse gases, a
depository of biotic diversity, a determinant of local climate, and as the
resource base for a rapidly growing population worldwide. Much of the work
on tropical deforestation to date has focused on science independent of
policy relevance. The proposed research seeks to redress this situation.
It develops an explicitly policy-oriented model to project trends and
scenarios of tropical deforestation for one of the remaining large blocks of
tropical forests in southern Mexico. As this area is subject to growing
immigration and resource extraction, resource managers and institutions are
faced with a bewildering array of immediate and longer term decisions.
The model therefore considers deforestation as the result of peasant farmer
decision making in the context of an array of complex biophysical and
socioeconomic environments. A new type of simulation model will be
developed, one that captures the "reality" of the situation but yet provides
outputs that are policy relevant. The model does so by: (1) examining how
individual decision making is affected by environmental and socioeconomic
constraints; (2) incorporating explicit spatial and temporal patterns of
forest change; (3) assessing the role of the value of information and
uncertainty; and (4) permitting stakeholders and policy makers to evaluate
scenarios of alternative land-use and institutional strategies. The model
is not conceptually derived but based on household surveys, archival
research, and spatial data including aerial photography, satellite imagery,
and maps of land-use and biophysical characteristics.